New numerical techniques for non-Newtonian flow simulations and their application to modelling of complex flows

The research of the investigator is on the timely study of the
fluid dynamics of non-Newtonian fluid flows. The investigator
will examine systematically the design and development of an efficient
computational modelling package that can handle various
macroscopic models of complex fluids and also a wide spectrum of
physical parameters that have been elusive for conventional
numerical methods. In addition to general algorithmic developments
including the fast solution method like the multigrid methods, the
investigator aims to study and understand proper mathematical
models for a great variety of new physical phenomena arising in
the area of experimental rheology. In particular, the investigator
will tackle an important challenge of modelling a continual
oscillation of falling sphere in worm-like micellar fluid flows.
In contrast to the Newtonian fluid or the polymeric fluids, the
falling sphere in a worm-like micellar fluid undergoes a continual
and sustained oscillation as it falls. This part of the project
will involve testing various macroscopic models that are relevant for
the worm-like micellar fluids and will lead to identification of the right
mathematical models for a falling sphere experiment. The
investigator will also address a mathematical foundation for
the so-called high Weissenberg number problem. Despite recent
significant progress, the successful computations are still
confined to very restrictive size of the Weissenberg number for a
large class of non-Newtonian fluid models including the well-known
Oldroyd-B model. The investigator will implement the new numerical
methods for the computer simulations of highly elastic fluid
flows, namely, models with high Weissenberg number to simulate and
understand another newly observed intriguing physical phenomenon,
the elastic turbulence.

Fluids comprised of large macromolecules, known as non-Newtonian
fluids or complex fluids, can generate many new physical
phenomenon. Examples of non-Newtonian fluids can be found
throughout our daily lives, including molten plastics,
engine oils with polymeric additives, paints, and many biological
fluids such as egg white and blood. The design, implementation,
and the use of numerical methods for the computer simulation of
such physical phenomena requires full grasp of non-Newtonian
fluids and the results of the investigator's research are
expected to have significant applications, for example in industry.
Namely, a polymer engineer could perform elaborate
Computer Aided Design (CAD) studies in which the link between the
molecular architecture of the raw material and the final
properties of the product would be established, at least
qualitatively. Production problems would be predicted and
partially overcome through improved design. One could also think
of using an on-line computational rheology model in concert with
appropriate control algorithms to provide for intelligent,
physics-based process control techniques. There are many more
opportunities that the investigator's research results
could generate.